Molecular Evolution of Talaromyces/Penicillium

Classification schemes for living organisms have predictive value when they reflect evolutionary relatedness based on genetic or genomic features of the organisms' DNA. Dr. John Taylor of the University of California at Berkeley is studying the evolutionary or phylogenetic relationships of select groups of fungi, using DNA analyses to measure mutational differences among species and to compare these results against morphological data. The work employs the new method of polymerase chain reaction DNA amplification, which permits analysis of DNA from as little as a single fungal spore. The information obtained about fungal DNA allows inference about genealogical relationships, and also provides the foundation for extremely rapid and accurate identification of fungal samples. Dr. Taylor is focusing this work on the fungal genus Penicillium, important both biologically and economically. Some species manufacture food and some make the beneficial mycotoxin, penicillin. Penicillium species also rot food and feed. Identification of these fungi and predictions about their metabolic activities are important to the food, pharmaceutical, agricultural, and medical industries. Penicillium and its associated sexual forms classified in the genus Talaromyces present fundamental problems in classification and phylogeny because persistent morphs in nature may reproduce only asexually. Morphological features are usually inadequate for associating closely related sexual and asexual forms into a coherent and natural scheme of lineages. The DNA methods are powerful tools for resolving this difficulty, because both forms contain similar genomes amenable to amplification and phylogenetic analysis.